Research Experiences for Undergraduates in Chemistry at the University of Kansas

9322061 Harmony University of Kansas Dr. Marlin D. Harmony and other members of the Chemistry Department of the University of Kansas are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1994-6, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic and physical in addition to bioorganic, biophysical and bioanalytical in collaboration with the University's Center for Bioanalytical Research. The primary source of the students will be students from small colleges in the region that are lacking in research facilities.